U.S.-Poland Research on Electrodynamics in Organic Molecular Solids: A Cooperative Study

INT- 0086475
Musfeldt

This is a U.S.-Polish collaborative research project on electrodynamics in organic molecular solids. The principal investigator is Dr. Janice Musfeldt from the University of Tennessee in Knoxville. Her Polish collaborator is Dr. Iwona Olejniczak from the Institute of Molecular Physics of the Polish Academy of Sciences in Poznan.

The researchers will investigate the polarized infrared and optical spectra of several chemically similar ET-based materials as a function of temperature and high magnetic field. Through this research they expect to provide further information on chemical and physical tuning in organic molecular solids.

This project in materials research fulfills the program objectives of bringing together leading experts in the U.S. and Central/Eastern Europe to combine complementary efforts and capabilities in areas of strong mutual interest and competence on the basis of equality, reciprocity, and mutuality of benefit.